New Developments in Coupled Cluster Theory and Applications

With this grant in the Theoretical and Computational Program of the Chemistry Division, Professor Scuseria will develop new algorithms for the application of coupled-cluster perturbation theory to the study of molecular electronic structure. This theory will be instrumental in understanding chemical bonding in transition metal dimers, hydrides and the C-H bond of acetylene. Four research projects will be carried out. (1) The formulation and implementation of an analytical energy gradient capacity within the open shell coupled-cluster method. (2) The implementation of a full coupled-cluster method that includes all single, double, triple and quadruple excitations. (3) A solution of the coupled-cluster equations that attempts to transfer the effect of triple excitations directly onto the single and double excitation amplitudes. (4) A formulation of the coupled-cluster theory in terms of the Hartree-Fock-Bogoliubov reference state as an alternate to the conventional multi-reference approach.